Enhancing Freshman Chemistry

The instruction in general chemistry is being improved by using technology which permits interaction by the students. An integrated system consisting of two computers connected to laser disc players with special touch sensitive monitors have been added to the chemistry instructional program. The technology is providing remedial instruction for the marginal students, supplemental instruction for the better students, and laboratory simulations for all of the students. As a result, students are having experiences that were not previously possible because of the potential danger they present. The grantee is matching the award from non-Federal sources.